Symposium on Undergraduate Research, October 16-20, 2011 in San Jose, CA.

This project is to support undergraduate students attending and participating in the Symposium on Undergraduate Research to be held at the Laser Science XXVII Conference, October 16-20, 2011 in San Jose, CA. The symposium will take place on Monday of the conference. Previous years' programs are at http://www.aps.org/units/dls/meetings/symposium/index.cfm. The intellectual merit of this project is to present and disseminate the results of the research work of the participants, mostly from NSF-supported REU programs, and possibly to initiate collaborations among them.

The broader impact is to provide the opportunity for these young students to attend a national meeting of this stature and give their first public talks. A secondary benefit arises because collaborations among them are often born in these sessions since very often students in different universities are involved in similar projects. A third impact is to inaugurate the networking among these students that will be so vital to their future careers as professional scientists, and to encourage them to continue along such a career path.